HCC: Advancing Non-Invasive Brain Sensing Methods to Improve Passive Brain-Computer Interfaces

This project seeks to advance brain-computer interfaces (BCIs) by creating new brain measurement techniques and developing user interfaces that monitor and respond to a user’s brain state in real-time. For example, when a system detects changes in overall mental workload or in specific components of workload, the user interface will respond by subtly changing the interface itself or the tasks presented to the user in ways that improve performance without distracting the user. The project uses passive, non-invasive optical measurements via functional near-infrared spectroscopy (fNIRS), which is a technology that shows promise for developing low cost, easy to use devices in the future. By advancing wearable technology with precision brain measurement and feedback capability, the project will enable future more responsive, accessible BCI devices while spurring further advances in neuroscience.

While previous BCI work has focused on overall mental workload as its main measurement, this project will develop improved hardware, software, and mathematical techniques that will be able to distinguish more specifically between the two key networks in the prefrontal cortex, the task-positive and default-mode networks that are associated with logical problem-solving and mind wandering, respectively. Current fNIRS-based BCIs lack the necessary measurement specificity to target deeper cortical regions and distinguish these regions reliably. The project addresses this limitation through personalized dual-slope frequency-domain near-infrared spectroscopy. Unlike continuous-wave spectroscopy, this technique captures both intensity and phase information from modulated light, enabling depth-sensitive measurements. By individualizing dual-slope configurations to each person's anatomy, the method will achieve higher spatial specificity while maintaining the practical advantages and convenience of fNIRS. This will enable BCIs to access previously underutilized brain regions for improved adaptive interfaces. Overall, the project seeks to transform the field of implicit or passive brain-computer interfaces by introducing practical, low-cost brain measurement techniques and leveraging them to create and evaluate new kinds of user interfaces.